Nineteenth International Workshop on Operator Theory and Applications

Abstract
Rodman

This award is for partial support of the International Workshop on Operator Theory and Applications (IWOTA), which has met biannually since 1981 (and more frequently in recent years) rotating among twelve countries on four continents. These conferences have presented opportunities for young researchers to present their work to an expert audience and to further their knowledge of the field by interacting with more experienced mathematicians. In a combination of plenary lectures by eminent mathematicians and experts in related applied areas, the planned conference will cover a wide range of topics, including operator inequalities, hyper-complex operator theory, model and structured operators, operators and systems, multivariable operator theory, composition operators, applications of indefinite inner product spaces, interpolation, moment problems, factorization problems, structured matrices, orthogonal polynomials, special classes of operators, financial mathematics, and core engineering. The planned conference will also be held in conjunction with WONRA (Workshop on Numerical Ranges and Radii and Applications), a topic that recently attracted particular attention in view of its applications to quantum information.